NSF Young Investigator

This 1992 National Science Foundation Young Investigators (NYI) grant focuses on the development of computational techniques which can control engineering analysis accuracy using adaptive multiscale techniques. This approach is a hybrid of the hierarchical modeling technique based on the a posteriori estimation of discretization errors. The techniques developed will be general, however, specific emphasis will be given to the analysis of advanced material behavior.